Algorithms for Approximation and Graph Problems

Title: Algorithms for approximation and graph problems
PI: Richard Cole
CCR-0105678

This research concerns the finding of approximate solutions.
It is often the case that finding exact solutions is vastly too
expensive in terms of the time required, to the point of
being infeasible. Yet fairly accurate solutions which are
"good enough" may be obtainable in a much shorter time, and
consequently be more practical. The specific problem domains
on which this research focuses range from pattern matching
(for example, devising algorithms to find similar and/or
repeating patterns in DNA sequences) to intrinsically
intractable problems such as the travelling salesman problem
(which amounts to finding a shortest route connecting a
collection of cities).

The research on string matching is considering new notions
of approximation so as to devise efficient algorithms for a
broader class of approximate matches than is feasible presently;
both searches between pairs of strings and against a database
of strings are being studied. The second part of our research
focuses on NP-hard problems. We are looking at multicost
shortest path problems (e.g. with a cost comprising both
time and price) in which one seeks all non-dominated solutions,
at improving the quality of approximations for the Travelling
Salesman Problem in the plane, and also at improving the
approximations obtainable for generalized Steiner Tree problems.